Structural and Petrological Investigation of Four Tauride Ophiolites: Implications for the Evolution of Neo Tethys and the "Ophiolite Controversy"

The Mesozoic history of the Alpine Middle East can be divided on the basis of the recognition of two distinct oceanic tracts that have evolved somewhat interdependently. The older Paleotethyan tract originally separated Laurasia from the Gondwana supercontinent but was closed when a microcontinent separated from Gondwana and moved towards Laurasia, causing the opening of the Neotethyan tract. Recent work in Turkey has shown the presence of remnants of well-preserved segments of both the Paleo- and Neo- Tethyan ocean basins. This project will study a suite of ophiolites in Turkey believed to represent ocean floor of these two ocean basins, and will address aspects of their origin and emplacement histories. Results bear directly ont he quite complex but overall convergent tectonics of the Mediterranean - Middle East region.